Collaborative Research: Syntactically-annotated corpora for endangered languages in areal contact

There is a revolution underway in the ability for computers to understand and use human language. This revolution, though, depends on techniques that require large amounts of data. This project builds specially annotated datasets of a series of endangered languages for which only small amounts of data exist, validating new computational techniques that work on datasets such as these. This develops language technology that works on "small languages", while also generating new, computationally driven analytical insights about the grammars of the languages of interest. A core aspect of the project is training, providing opportunities for US students to learn these computational tools, to build high quality datasets, and to build technological platforms on top of the datasets produced by the project. The overall result is an increase in the United States' language infrastructure, including human resources, since the project prepares students to enter the private sector, government, or academia with advanced STEM training in computational linguistics.

Universal Dependencies (UD) is a standardized framework for building syntactically annotated corpora of any language in the world. The UD framework has garnered widespread support due to its ease-of-use for quantitative linguistic analyses and cross-linguistic comparisons, and due to its utility for training natural language processing (NLP) pipelines to annotate new input texts. It is especially useful for dealing with smaller languages where rich annotation can make up for lack of large datasets, which many modern NLP techniques presuppose. This project develops five new UD corpora of endangered languages of sufficient size to do deep scientific analysis as well as to build technology platforms. The final results of this project are: (1) Five freely-available and fully-annotated treebanks of at least 30,000 tokens, (2) free and open-source natural language processing (NLP) pipeline models to automatically perform word segmentation, stemming, morphological analysis, and syntactic parsing for each of the target languages, also made freely available in public-facing code repositories, (3) novel methods for identifying areal linguistic clusters in large multilingual language models, and for leveraging this information to bootstrap NLP systems for related languages, and (4) a thematic volume describing comparative quantitative and computational syntactic investigations based on the corpora collected during the project. This award is made as part of a funding partnership between the National Science Foundation and the National Endowment for the Humanities for the NSF Dynamic Language Infrastructure – NEH Documenting Endangered Languages Program.